Descriptive and Computational Complexity

Computational complexity is a modern discipline which analyzes the inherent difficulty of a given task. A great deal of progress has been made in classifying the time and space requirements of certain combinatorial problems. The complexity classes L, NL, P, NP - logarithmic space, nondeterministic logarithmic space, polynomial time, nondeterministic polynomial time, respectively - have been studied extensively. Still little is known about the comparative strengths of different resources - it is yet to be proved that the above classes are not all identical. Previously these classes have been studied from a mathematical viewpoint. The inherent difficulty of expressing conditions has been studied and a robust alternate view of complexity ensues. The computational complexity of a property is closely tied to the complexity of expressing the property in first-order logic. A series of languages which express exactly those properties checkable in a series of computational complexity classes has been introduced. The existence of such natural languages for each important complexity class sheds a new light on complexity theory. These languages reaffirm the importance of the complexity classes as much more than machine dependent issues. Quite recently this approach has lead to a proof that the class NL is closed under complementation. A corollary of this surprising result is that the class of context-sensitive languages is closed under comlementation, thus settling a long standing open question in complexity theory. This project continues this line of research on complexity theory. The main thrust is the investigation of parallel time/processor trade-offs via the equivalent parameters from descriptive complexity. Furthermore, the scope of the research will be broadened to include the modelling of real-time and database computing.